Travel Support for the 20th ACM Symposium on Operating Systems Principles

Participation in leading conferences is an extremely important part of the graduate school experience, providing the opportunity to interact with more senior researchers and to be exposed to leading edge work. The support requested in this proposal will make possible the participation of students who would otherwise be unable to attend. Particular attention will be paid to directing support towards underrepresented minorities including women, African-American, and Native Americans.

For over 30 years SOSP has been the leading forum for innovative research in operating systems. SOSP will bring together researchers from around the world to present and discuss the latest results in Operating Systems Principles such as; emerging topics as ubiquitous and mobile computing, sensor networks, overlay and peer-to-peer communications and power management. There will also be poster and work-in-progress sessions for the presentation of promising preliminary work.